Postdoctoral Research Fellowships in Chemistry

Dr. John Porco has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Porco's doctoral degree was from Harvard University under the supervision of Professor Stuart Schreiber. Dr. Porco intends to continue research at the Research Institute of Scripps Clinic under the sponsorship of Professor Chi-Huey Wong. Dr. Porco's postdoctoral training will provide him with skills in enzyme manipulation, carbohydrate synthesis and antibody-antigen recognition. Longer term, he plans to design and generate catalytic antibodies for oligosaccharide cleavage. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.